Fundamental Research on Net Shaping of New Products, Award in U.S. and Indian Currencies

Description: This award supports cooperative research between U.S. and Indian investigators on projects devoted to fundamental research on net shaping of steel and new steel products. The U.S. work will be coordinated by Dr. George Krauss of the Colorado School of Mines (CSM) and the Indian work will be coordinated by Dr. V. Ramaswamy of the Research and Development Center, Steel Authority of India Limited (SAIL) in Ranchi, India. Most of the specimen preparations, processing and testing on a bench scale as well as some pilot plant processing will be performed in India. The U.S. investigators will concentrate on special analysis and interpretation of results. The projects and the cooperating scientists are: 1. Direct Casting of Thin Strips: D. Apelain, Drexel Univ., and N.S. Mishra, SAIL. 2. New Alloy Steel Products: G. Thomas,U. Calif. Berkeley, and V.S. Dwivedi, SAIL. 3. Chip Formation and Surface Finish: G. Krauss, CSM, and A.K. Sengupta, SAIL. 4. Texture of Deep Drawing and Electrical Steels: H. Hu, Univ. of Pittsburgh, and S. Mishra, SAIL. 5. Laser Surface Modification: J. Mazumder, Univ. of Illinois, and S.K. Choudhuri, SAIL. 6. Hydrogen Induced Cracking and Stress corrosion: G.R. St.Pierre, Ohio State Univ., and B.D. Tripathi, SAIL. 7. Ferritic Ship Steels: B.B. Rath, Naval Res. Lab, and L.K. Singhal, SAIL. 8. TMT Rolling and Controlled Cooling of Strip and Plate Steel: A.J. DeArdo, U. of Pittsburgh, and S. Mishra, SAIL. 9. Microalloyed Forged and Controlled Rolled Steel: G. Krauss, CSM, and A.K.. Sengupta, SAIL. 10. Weldable Rail Steels: G.R. Speich, Illinois Inst. Tech., and S. Banerjee, National Metallurgical Lab. 11. Rolling Model by FEM for Predicting Phase Transformation: A.J. DeArdo, U.of Pittsburgh, and S.Mishra, SAIL. Scope: The projects to be supported are of great interest to U.S. and Indian scientists for understanding the mechanics of production of better steel materials for various applications. They were developed during and following an Indo-U.S. workshop on Steel Research held in India in January 1986. Funding: The projects are being funded under two grants. INT8814271 to CSM INT8818781 to SAIL FY88 US$80,000 + $74,000 (Ind.Rs.) $112,923 (Ind.Rs.) FY89 US$80,000 (Incl.$40,000 from MSME) FY90 US$80,000 (Incl. $40,000 from MSME)